Conference on Museums and New Family Audiences-- Building Relationships

The Franklin Institute Science Museum is planning, implementing, evaluating and disseminating the results of a 2.5 day conference entitled "Museums and New Family. Audiences - Building Relationships." The conference will be held in Philadelphia and involve a total of 75 professionals representing 25 museum/community programs, local community partners, advisers, and community partnership funders. Growing out of several initiatives over the past decade, the primary goal of the conference is to explore how museums and other informal science education organizations can develop and maintain long-term museum/community relationships to engage underserved families in informal STEM activities. Outcomes will include stronger relationships, a set of best practices and guidelines to be disseminated to the field, and the beginnings of a network.